PRF: Factors Influencing Individual Diet Selection in Two Polyphagous Orthopteran (Insecta) Species

Individual feeding patterns in two species of polyphagous grasshoppers will be studied to evaluate the impact of genetic and non-genetic factors on diet selection. Feeding by polyphagous grasshoppers is currently viewed as selective among plant species, but generalized among any of several preferred, substitutable hosts. Local abundance of preferred food plants is thus generally thought to affect individual diet breadth. This idea will be tested against the alternatives that plants consumed by generalist feeders are complementary resources, and that specialized feeding is due to genetic adaptation to host plants or to preferences induced during development. In order to determine the breadth of individual diets and relative proportions of specialist and generalist feeders in each population, occurrence of plant species in fecal pellets of marked individuals within enclosures will be quantified. Measures of variation in fitness-related characters in full and half-sib families of grasshoppers (derived from insects with known dietary histories, raised on different diet treatments) will be taken. Such data will provide information on the degree of individual polyphagy within populations, clarify the reasons why individuals feed as they do, and permit detailed analysis of the genetic structure of two hemimetabolous insect populations. Research will be done during a two-year postdoctoral fellowship tenure at the University of California, Berkeley.